Development of Lightweight Instrumentation for the In-Situ Detection of C10, Br0, 03, P and T from a High-altitude (25 Km), Unmanned Aircraft for Flights from Midlatitude, Sub

Researchers at Harvard University and Aurora Flight Sciences are developing the Perseus unmanned aircraft as a dedicated platform for high-altitude atmospheric science research. Its initial mission is to carry a 50kg (110 lb) payload to an altitude of 25 km (82,000 ft) and return it for reuse. The combination of computationally based low Reynolds number aerodynamics, lightweight composite structures, and advanced microelectronics represented in Perseus promises to offer significant capability enhancements for a variety of atmospheric investigations, both research and operational. Some of the missions proposed to date include measuring the stratospheric chemistry, earth's radiation budget, determining sources and sinks of CO2 and CH4, studying stratosphere-troposphere exchange, hurricane research and forecasting, and tropical meteorology. Many of these missions require platforms with either high altitude capability or long duration.